Foam Rheology

The project objective is to develop a microrheological theory for foams, which relates foam structure and the physical properties of constituent phases and interfaces to macroscopic rheology. A collaborative work with Dr. A. Kraynic of Sandia National Laboratory is proposed. Two- and three-dimensional foam flow with spatially periodical structure will be simulated by both analytical means and large scale calculations. The research will provide new insights into the foam rheology and a computational approach for the constitutive laws of several typical foams. This is a one year award to better formulate the problems and research objectives. Foams and concentrated emulsions are of considerable importance in the food, cosmetics, and pharmaceutical industries.